Acquisition of Time-Domain Electron Paramagnetic Resonance Instrumentation

This award from the Academic Research Infrastructure Program will help the Department of Chemistry at SUNY Binghamton acquire a time-domain electron paramagnetic resonance spectrometer (TD-EPR). The research activity to be supported includes: (1) room- and low- temperature TD detection of short-lived excited states and electron transfer intermediates in surface photoelectrophotochemistry, (2) TD-EPR at low temperatures to detect paramagnetic photoexcited states of CH-bond activating carbonyl complexes and SS-EPR studies of Cubenzimidazole complexes in microelectronics, (3) SS-EPR of bis- ethylenedithiolotetrathiofulvalenes, etc. and varaible temperature TD-EPR of spin relaxation to characterize conductivity-relevant phenomena, (4) TD- and SS EPR of transition metal impregnation of solid-state materials for storage battery development, (5) EPR of carbenes in cyclodextrins and zeolites, (6) SS- and TD-EPR in solution and frozen solution of intermediates in tetraphenylborate photochemistry, (7) temperature dependence of TD-EPR T2's in spin probe models to characterize reactant molecular motion in zeolites, clays, porous silicas and carbonaceous materials, TD-EPR spin relaxation of natural free radicals in carbonaceous materials to characterize radical motions and interactions. An electron paramagnetic resonance (ER) spectrometer is an instrument used to obtain information about the molecular and electronic structure of molecules. It may also be used to obtain information about the lifetimes of free radicals which are often essential for the initiation of tumor growth and/or a variety of chemical reactions.